Optical Feshbach Resonances and Solitons in Quantum Degenerate Strontium

Many technological marvels in modern society rely upon our ability to
understand and control the properties of materials on a microscopic
level, such as tuning the electrical conductivity in semiconductors that
are used to make computer chips. In the last decade, there have been
great advances in the creation and study of ultracold clouds of gaseous
atoms, which are cooled by lasers to temperatures around a millionth of
a degree above absolute zero. Ultracold atoms made in this way have the
amazing property that their interactions can be arbitrarily controlled,
which opens the possibility of using them to make designer materials or
test models of complex and important phenomena such as high temperature
superconductivity. The tool currently used to control these interactions
is the application of a strong magnetic field, but magnetic fields have
disadvantages; it is difficult to quickly change large magnetic fields
or vary fields on small length scales. Prof. Killian's research group at
Rice University in Houston, Texas will develop new techniques for
manipulating atom-atom interactions using lasers, which are much more
flexible and may open the way to new applications such as laser beams
made of atoms instead of light, or the ability to make new states of matter.

This work will also involve at least two graduate students and one
undergraduate student, and it will train them for high-technology
careers in optics or materials. The ultracold atomic physics laboratory
at Rice also has a partnership with the Houston campus of Yes Prep High
School, a highly successful charter school targeting disadvantaged
youth. This collaboration brings high school students into the
laboratory for term-time visits and summer camps, and introduces them to
the excitement of science at the frontiers of discovery in hopes of
inspiring them to pursue science, technology, engineering, and math
careers. Basic atomic physics experiments such as these are laying the
scientific and human resources foundation today for the technological
marvels of tomorrow.